Workshop Support: Workshop on New Research Frontiers in Shape, Solid, and Physical Modeling

Workshop on New Research Frontiers in Shape, Solid, and Physical Modeling
PI: Hong Qin, SUNY at Stony Brook
Abstract:
On June 2-6, 2008, State University of New York at Stony Brook (Stony Brook University) will be hosting
and co-sponsoring Stony Brook Modeling Week. The Stony Brook Modeling Week comprises two
prestigious symposia that are being held consecutively, namely, the annual Solid and Physical Modeling
Symposium (to be held on June 2-4, 2008) and the annual International Conference on Shape Modeling and
Applications (to be held on June 4-6, 2008). The first of these two conferences, the ACM Symposium on
Solid and Physical Modeling (SPM) is co-sponsored by the Association For Computing Machinery Special
Interest Group on Computer Graphics (ACM SIGGRAPH). It is an annual international forum for the exchange
of recent research results in applications of spatial modeling and computations in design, analysis,
simulation, and manufacturing, as well as in emerging biomedical, geophysical, and other relevant areas.
The second conference, the International Conference on Shape Modeling and Applications (SMI) is cosponsored
by the Institute of Electrical and Electronic Engineers Computer Society (IEEE-CS) and provides
an international forum for the dissemination of new computational techniques for modeling and processing
digital representations of shapes and their properties to a diverse community of experts across a wide range
of areas. These two conferences together traditionally had formed the International Convention on Shapes
and Solids in 2004 and 2005, respectively.